Systematic Restructure of Digital Logic Design Course

This project undertakes a systematic restructuring of how introductory digital logic design is taught. The same computer-based tools used to carry out logic design by practicing engineers is brought to bear on the learning process. The use of workstations in the classroom and by students for simulation, computation and optimization is emphasized. The restructuring effort will begin with two short-term objectives: to develop new homework problems and other learning activities which make use of logic simulation software, and to provide student access to a multimedia electronic knowledgebase dealing with digital logic design. The homework problems developed and a videotape describing the multimedia knowledgebase will be made available to other academic institutions for the cost of duplication. Results will be disseminated at the Frontiers in Education conference.